US-India Planning Visit: Restoration and Conservation of Human-Impacted Mangrove Ecosystems

This individual award supports a planning visit by Dr. Judith Z. Drexler to visit Dr. M. S. Swaminathan, of the M. S. Swaminathan Research Foundation (MSSRF), Madras, India. Dr. Drexler will carry out pilot restoration projects on the hydrological management of an estuarine, backwater system and a lagoon system as part of the Mangrove Conservation and Management Project. Indian mangrove systems protect the coastal wetlands from the effects of severe weather systems, contain a high degree of biological diversity, and serve as a resource for food and shelter items for local communities. These mangrove systems have been seriously degraded by agricultural and rural development, and the MSSRP project is exploring ways in which they can be restored and maintained. The initial results of the pilot projects will form the basis of a research project Dr. Drexler will submit to the National Science Foundation's International Research Fellowship Program.